Morphology Control of Olefin Based Homo- and Copolymers in Catalytic Gas-Phase, Slurry and Emulsion Polymerization

In this project, funded by the Macromolecular, Supramolecular, and Nanochemistry Program of the Chemistry Division, Kenneth Wagener and Stephen Miller of the Department of Chemistry at the University of Florida will investigate the architectural expansion of available polyolefin structures. This objective will be made possible through a variety of methods. With newly developed single-site catalysts, characteristics such as catalyst structure, activation processes, polymerization kinetics-under homogeneous as well as heterogeneous conditions-and, especially, immobilization/supporting techniques will be controlled for the development of new polymerization systems. Key parameters include control of tacticity, product morphology (size, shape of product particles), polymer molecular weight, comonomer incorporation, and comonomer sequence distribution. Special challenges to be addressed are the formation of core-shell structures of polyolefins and the use of polar monomers. Also, the elusive formation of polyolefin nanoparticles will be sought. An interdisciplinary approach will be applied and strengths found in five separate research groups will be combined and exploited. The five lead investigators are Klaus Müllen (Max-Planck Institute for Polymer Research, Mainz, Germany), Brigitte Voit (Leibniz-Institute für Polymerforschung, Dresden, Germany), Kenneth Wagener, Stephen Miller, and Heloise O. Pastore (Universidade de Campinas, Brazil). The broader impacts involve holding workshops on the research topics, scientific interactions with polyolefin companies, and international training of U.S. graduate students. Graduate students will conduct their research projects in the laboratory of a foreign collaborator for several months. These student exchanges will help develop an infrastructure for research and education and greatly enhance the international dimension of their training experience.

The successful execution of this research project will result in new plastic materials with properties that are improved and finely-tuned compared to available products. There exists a wide variety of potential applications, including strong lightweight plastics, composite materials, and specialty polymers.